Stability at the Edge: Cyber-Physical Risks and Control of Hyperscale Data Centers in Future Inverter-Dominated Grids

Hyperscale data centers that support cloud computing and artificial intelligence (AI) are expected to become some of the largest electricity consumers in the United States over the next decade. At the same time, the electric grid is rapidly transitioning from conventional power plants to inverter-based resources (IBR)-dominated systems. These changes are creating a fundamentally different power system in which both electricity demand and generation are increasingly dominated by fast electronic devices. This project aims to determine whether the large-scale deployment of AI data centers could create new pathways to widespread power outages and cyber-physical disruptions in future electric grids. The project will bring transformative change by establishing the first comprehensive framework for understanding how large electronic loads, advanced computing infrastructure, and inverter-dominated power systems interact dynamically. The intellectual merit of the project includes advancing fundamental knowledge of power-system stability in the presence of hyperscale AI data centers, discovering new failure mechanisms associated with large electronic loads, and developing predictive cyber-physical control strategies that improve grid resilience. The broader impacts of the project include strengthening the reliability and security of the nation’s energy infrastructure, informing future planning and interconnection decisions for AI data centers, creating open-source tools and datasets for researchers and practitioners, and educating a future workforce at the intersection of power systems, cybersecurity, AI, and critical infrastructure resilience.

This project will develop a multi-timescale modeling and control framework for large-scale power grids containing hyperscale AI data centers and high penetrations of inverter-based resources. The research will construct dynamic models that capture interactions among data center computing workloads, cooling systems, uninterruptible power supplies, transmission networks, and inverter-based generation. These models will be used to identify stability boundaries and characterize new outage mechanisms, including frequency instability, voltage recovery failure, oscillatory instability, and cascading equipment trips. The project will then develop coordinated control strategies that explicitly incorporate dynamic stability margins into operational decision making. These methods will coordinate data center demand response, cooling flexibility, energy storage, and inverter controls to proactively reshape stability boundaries rather than merely react to disturbances. Finally, the research will create cyber-physical models of load-altering attacks targeting data center operations and develop predictive detection and mitigation methods capable of responding to disturbances at the time scales of modern electronic loads. The resulting theories, models, algorithms, and risk maps will provide a scientific foundation for the secure and reliable integration of rapidly growing computing infrastructure into future low-inertia power grids.